Oceanographic Instrumentation

The PI requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V Thompson, a 274 foot vessel that is owned by the University. Both ships are operated by the University in support of basic oceanographic research efforts. NSF-funded scientists are the primary users of both ships. Instrumentation requested includes computer hardware and network upgrades, a set of 12-position carousels, meteorological sensors for the R/V BARNES, thermal graphic recorders, and upgrades to the side-scan sonar system. The instrumentation requested is required for support of NSF-funded cruises aboard the THOMPSON and the BARNES during 1996 and will enhance the scientific capability of the vessels in the future.